Learning and Reformulation for Efficient Multidatabase Retrieval

9313993 Knoblock An important and difficult problem in Knowledge Management is how to efficiently retrieve information from distributed, heterogeneous multidatabase systems. This project addresses this problem by bringing to bear a richer set of knowledge about databases to optimize multidatabases queries. The idea is to use semantic knowledge of the contents of databases to reformulate queries into equivalent yet less expensive ones. Using this knowledge, the potential cost reduction is significantly more than can be derived from convention query optimization alone. Since the semantic knowledge required can be learned from any database, this approach is applicable to other Knowledge-intensive systems. ***